Postdoctoral Research Fellowships in Chemistry

Dr. Jorge Colon has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Colon's doctoral degree was from Texas A & M University under the supervision of Professor Charles R. Martin. Dr. Colon intends to continue research at the California Institute of Technology under the sponsorship of Professor Harry Gray. Dr. Colon's area of postdoctoral training and research will be photoinduced electron transfer reactions of metal complexes. These studies will ultimately be applied to long-range electron transfer in proteins and in model systems relevant to solar energy conversion. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.